Grantees Workshop On The NSF-ONR Research Initiative-Electric Power Networks Efficiency And Security (EPNES) being held July 12-14, 2004 in Mayaguez, Puerto Rico.

This grant will support the organization and hosting of a workshop on the NSF/ONR research initiative in "Electric Power Networks Efficiency and Security (EPNES)". The workshop will include research performers from each of the institutions awarded grants in 2002 and 2003, representatives from FERC, NERC, DoE, ONR, EPRI, Entergy, and 4 African invitees from Nigeria, Cameroon, and Botswana who are Co-PIs with the US EPNES Principal investigators. It will also include the preparation of workshop proceedings that will feature technical information provided by the grantees. These proceedings will later be developed into chapters of a special edition of a book.

Intellectual merit: This grant will create interaction between EPNES researchers and will stimulate intellectual discussions between them and representatives from FERC, NERC, DoE, ONR, EPRI, Entergy, the Puerto Rico utility, and African researchers.

Broader impact: This grant will (i) broaden the activities of the investigators to a
national level, (ii) include minorities who will inspire and encourage more minorities to participate in this type of research, and (iii) include a workshop proceedings and a book that will disseminate the findings to a wide audience of other researchers in this area and areas related to network efficiency and security.